Axon Guidance at an Intermediate Target

The aim of this research project is to determine the cellular and molecular events that underlie the guidance of axons within the developing mammalian central nervous system. Dr Dodd has identified an intermediate target in the trajectory of a class of commissural neurons that appears to play a pivotal role in their guidance within the embryonic rat spinal cord. This structure, termed the floor plate, consists of a set of specialized epithelial cells. Although intermediate targets have been described in invertebrates they have not previously been observed in vertebrates. The effects of the floor plate on the morphology of commissural growth cones will be examined. In an EM study, floor plate.commissural growth cone contacts for morphological evidence of cellular communication through specialized junctions will be examined. In addition, the surface properties of floor plate cells will be characterized using immunochemical methods and the function of these molecules in floor plate/growth cone adhesive interactions that may be important for guidance at the midline will be examined. Many of the mechanisms that have been hypothesized to account for pathfinding by developing axons as they extend towards their final targets are based on experiments performed in invertebrates or in the peripheral nervous system of vertebrates. The studies described here will provide new information about the guidance of developing axons within the mammalian central nervous system and already suggest emerging parallels in the strategies and mechanisms by which neuronal projections are established in vertebrates and invertebrates.